Innovative Strengthening Techniques with Composite Materials

This project will investigate the feasibility of applying a pretensioned fiber composite plastic sheet bonded to the exterior of a concrete girder to increase the load resistance of the girder. The method may have application to new bridge construction as well as existing bridges.